Mathematical Sciences: Presidential Young Investigator Award

This Presidential Young Investigator Award will enhance support for Francis Bonahon's research in low-dimensional manifolds, particularly (1) the geometry of Teichmueller space, (2) three-dimensional hyperbolic manifolds.